A Revolution in NMR Applications Using Optimal Control Theory

In this project, funded by the Experimental Physical Chemistry Program of the Chemistry Division, Prof. Thomas E. Skinner of Wright State University and his graduate and postdoctoral research colleagues develop optimal control methods to enhance the performance of nuclear magnetic resonance (NMR) spectroscopy. Due to the ubiquity of NMR spectroscopy in chemistry, biology and medicine, the results of this research should have a broad impact.

In addition to the broader scientific impact of the proposed research, Prof. Skinner will collaborate with international partners, and he will make his pulses and pulse sequences available to the public through his own website and through the BioMagResBank at the University of Wisconsin.